2020 Device Research Conference (DRC), To Be Held Virtually June 21-24, 2020.

The proposed project seeks financial support to increase student participation and enhance technical training at the 78th Device Research Conference (DRC). This is a virtual conference, held from June 21 to 24, 2020, and all participants will join remotely. The conference will focus on a fabrication, characterization, modeling, and simulation of devices. The conference will include presentations on devices based on emerging materials systems such as organic and hybrid semiconductors, low-dimensional materials, and ultrawidegap semiconductors. A variety of device applications will be discussed, including biological devices, energy scavenging devices, spintronic and magnetic devices, memory devices, nanoelectronics, optoelectronic and photonic devices, power devices, and quantum devices. The Conference will host world-renowned researchers in advanced devices as invited speakers, whose expertise range from design, to fabrication characterization and applications. In addition to technical talks, a short course on a highly relevant topic presented by renowned world experts will greatly enhance the usefulness of the conference to attendees. The technical program will provide student participants with the opportunity to gain exposure to new materials and devices, their basic physics, and their engineering applications. Exposing the next generation of researchers to these important disciplines is critical to maintain the supply of STEM workers with the skillsets necessary to address emerging commercial trends. The information will be disseminated through online video presentations, downloadable posters and the conference proceedings.